New Challenges Posed by Global Interdepdenence -- 6th Biennial Student Pugwash USA Conference on Science, Technology, and Ethical Responsibility, June, 1989

This award provides partial support for an international conference and related projects at colleges and universities on isses in science, technology, and ethical responsibility. The theme of these projects is "New Challenges Posed by Global Interdependence." They will examine ethical and value issues raised by global interdependence in four areas: environmental science, bioengineering, information science, and global security. The conference will bring ninety outstanding students from diverse disciplines and nations together with leaders of varying perspectives in academia, government, industry, and non- profit organizations. Conference participants will prepare research papers, to be published in academic and professional journals, which will serve as the focus of small working group discussions during the week of the conference. The conference will also feature plenaries by national figures. In conjunction with the conference, Student Pugwash chapters, currently active on forty-three college and university campuses, will sponsor educational events -- symposia, roundtables, lectures, debates, and an ongoing electronic conference -- on issues in global interdependence. An evaluation will be developed and conducted. Private foundation and corporate sponsors will provide over two- thirds of the funds for this effort. The scope and organization of this activity are highly meritorious; it has evolved into a truly unique national, even international, student educational effort on science, engineering and social responsibility. The institutional sponsor has an excellent track record. Matching support has been received and will continue to be received from several corporate and private foundations. For the first time, a campus chapter program has been linked to the conference, and an evaluation is being planned. These project components have great potential to augment and improve what has been a very successful endeavor. Support in the amount of $128,772 is awarded.